Unsaturated, Multifunctional Transition Metal Complexes

This award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program provides continued support to Dr. Kenneth G. Caulton of the Chemistry Department, Indiana University, for synthesis and reaction studies of unsaturated organometallic compounds. Theoretical work will be carried out in collaboration with Dr. Odile Eisenstein of the Universite de Montpellier, France. The goal of the research is to determine reactivity patterns for compounds having several different functional ligands attached to the same metal atom. The compounds synthesized will contain a mixture of ligands such as hydride, halide, alkyl, and carbene. Relative reactivity of various ligands will be determined directly and complex reactions such as alkyl migration and intramolecular reduction elimination in the same molecule will be monitored. Multifunctional metal complexes may also deliver more than one functional group to another molecule. The target compounds will be selected because of their ability to undergo nucleophilic or oxidation reactions at low temperature. Studying reactivity under these conditions improves the possibility of identifying primary reaction products and maximizes the selectivity of reactions. Thermodynamic parameters will be determined. Specific reactions to be investigated include reductive elimination of benzene from osmium carbonyls, removal of halide from 16-electron species to form 14-electron compounds, and reaction of trifluoromethyl ligands to form difluoromethyl ligands. Unusual reactions of a wide range of organometallic compounds will be studied, including C-H and C-F bond activation and reactivity of coordinatively unsaturated compounds. Reactions of this kind are important to obtaining a basic understanding the behavior of homogeneous catalysts.